RAPID: Characterization of the shear stress enhanced electric field gradients in MOF/Polymers composite thin films and multilayered fibers.

Non-technical Summary: This RAPID project, supported by the Solid State and Materials Chemistry Program in the Division of Materials Research, is focused on fundamental investigations, aimed at advancing our knowledge about materials with nanoscale-level filtration capabilities that have possible applications in the development of longer lasting respirators with increased ease-of-wear. This type of research has become necessary due to the current coronavirus (COVID-19) pandemic, of which the loss of lives, reduced financial livelihoods and reduced quality of lives are just a few of the already manifested consequences. In order to regain safe living and working environments, one of the main things needed is personal protective equipment such as facemasks and respirators. Unfortunately, there are worldwide shortages which have resulted in excessive reuse of these protective equipment, oftentimes to the detriment of not only the wearer, but others. Additionally, respirators are also uncomfortable to wear for most people, due to the inherent large pressure gradients and relatively low water vapor transmission. This project provides researchers in academia and industries involved in the development and application of filtration media with specific tuning procedures, which will in turn advance the welfare of society through improvements in our health, living and environmental conditions. Beyond personal protective equipment, the benefits of better nanoscale filtration media also extend to applications including water membrane treatments, nanoreactors, and chemical catalysis. The project involves the participation of students from various socioeconomic and education levels, and because of its interdisciplinary nature, they gain the knowledge and research experience involving aspects of chemistry, engineering, physics and material science.

Technical Summary: With support from the Solid State and Materials Chemistry Program in the Division of Materials Research, this RAPID research project focuses on fundamentally characterizing the variable shear stress enhanced local electric field gradients in composite polymers/metal organic frameworks (MOFs) thin films, and multilayered electrospun fibrous materials. The principal investigator and her research group study whether materials that have greater electric fields gradients (EFGs) exhibit superior filtration/adsorption properties. Generally, the filtration properties of composite polymers can be tuned by modification of their surface morphology (diameter, surface roughness, etc.) and one way to accomplish this is by the incorporation of MOFs. To further increase nano-filtration properties, the electrostatic characteristics must be enhanced, and this project accomplishes this by the directional alignment and enhancement of the local electric field gradients using variable sheer stresses. Multinuclear (1H, 2H, and 17O) Magnetic Resonance (NMR) and Scanning Electron Microscopy (SEM) provide information about the local interactions between the various polymers, as well as between the MOFs and the polymers. Information about the electric field gradients is accessed through the quadrupole 2H and 17O nuclei and their magnitudes correlated with the degree of shear stress applied. Polymer type, crystallinity and morphology are also investigated, along with different MOF types and content as well as the order of layering used to construct the multilayered fibrous composites.